Arabidopsis 2010: Regulatory mechanisms of energy signaling in plants

PROJECT ABSTRACT
Jen Sheen
IOS-0843244
Title: Arabidopsis 2010: Regulatory Mechanisms of Energy Signaling in Plants

Photosynthetic plants are the principal solar energy converter sustaining life on Earth. Despite its fundamental importance, little is known about how plants sense and adapt to darkness in the daily light-dark cycle or to unpredictable environmental stresses that compromise photosynthesis and respiration and deplete energy supplies. Recent studies have discovered that the evolutionarily conserved Arabidopsis protein kinases, KIN10 and KIN11, control convergent reprogramming of transcription in response to seemingly unrelated darkness, sugar and stress conditions. The project aims to build a new conceptual framework of energy signaling in plants by uncovering the diverse physiological and developmental functions, signaling links, and regulatory mechanisms of the conserved energy sensors. Inducible mutant transgenic lines will be use to gain new insight into the roles of energy signaling in plant response and adaptation to diverse environmental challenges, and in plant growth and development. Integrative cellular, biochemical, genetic and genomic approaches will be applied to enhance our understanding of the regulatory mechanisms of energy signaling from the control of sensor activity, stability, localization, partner interactions to its downstream transcription factors and primary target genes. This project represents a new line of research that integrates diverse plant responses and regulation into convergent energy signaling vital to plant growth and survival. The studies on the regulatory mechanisms of energy signaling are urgently important in light of the rising global needs in the development of renewable biofuels. The basic research will enable targeted genetic modification of carbon allocation, growth and development, architecture, and stress and pathogen resistance, all major determinants of crop yield and renewable energy production. The project will provide unique training opportunities for students and postdocs in multidisciplinary and integrative research, and promote woman and minority scientists as future research leaders. The Principal Investigator of the project offers educational and outreach programs serving the plant community and the general public.

Description of the network of genes selected
KIN10 At3g01090, KIN11 At3g29160, KINB1 At5g21170, KINB2 At4g16360, KINB3 At2g28060, KINBG At1g09020, KING At3g48530

URL of the Arabidopsis 2010 project
http://genetics.mgh.harvard.edu/sheenweb/main_page.html